Mathematical Sciences: Representation Theory: Quantum Groupsand Algebraic Groups

This research is concerned with the representation theory of quantum groups and its relation with the modular representation theory of an algebraic group. The principal investigator will study the compatibility of the Jantzen filtrations for Weyl modules and quantum Weyl modules; the structure of Weyl modules with highest weights in the non-generic position; and the structure of cohomology modules related to induction functors for both the algebraic group and the quantum groups, and the relations between them. A group is an algebraic structure with an operation defined on it. A group is called an algebraic group if its elements satisfy a polynomial identity. Algebraic groups are important for several different areas of mathematics, as well as physics.